Twenty-Seventh Midwest Probability Colloquium; October 21-22, 2005; Evanston, IL

The 27th Midwest Probability will be held at Northwestern University on
October 21-22, 2005. The Principal Speaker, Robert Adler, will give a
series of two connected lectures on a recent theme of probability theory.
The two Hour Speakers are Alice Guionnet and Marek Biskup, who will also
give talks on their recent researches in probability theory. It is expected
that 75-100 researchers will participate in this two-day meeting.

The Midwest Probability colloquium serves are a regular get-together of
probabilists from the greater Midwest area, while allowing graduate
students and other researchers a chance to interact with specialists of
similar interests. As in the past, it is planned to continue to give the highest
priority to people without other support, especially to junior researchers
and members of under-represented groups including women, minorities and
persons with disabilities.